Quantum-Classical Tradeoffs for Information-Processing Tasks

Quantum information science investigates the use of quantum mechanics to perform
information-processing tasks more efficiently than could be done using only classical
resources. To assess the efficacy of quantum information, it is crucial to compare the
quantum and classical resources required for particular tasks. The funding climate in the
United States, dominated by security and defense agencies, has favored investigations
of two particular tasks, quantum computation and quantum key distribution. Though
these are important applications of quantum information, focusing on them is perhaps
not the best strategy for assessing quantum-classical tradeoffs or discovering new
applications. This proposal addresses this question by suggesting research on two
topics where quantum-classical tradeoffs can be investigated
rigorously: Clifford and post-Clifford circuits and classical restricted-coordinate
problems.